Construction of High Resolution Eye (HiRes) Detector Stage I

9322298 Sokolsky Construction will start on a new instrument, the High Resolution Fly's Eye (HiRes), to detect cosmic-rays at the very highest energies yet observed or expected to be observed on earth and determine their spectrum, angular distribution and composition. It uses the unique air-florescence technique that has been demonstrated to be very successful in earlier versions of the Fly's Eye devices. The detector will be constructed at the U.S. Army Dugway Proving Grounds in Utah, the site of the earlier Fly's Eye apparatus and a HiRes prototype. The University of Utah group, in collaboration with physicists from Columbia University, the University of Illinois, and the University of Adelaide, Australia, will construct in a 5 year period first stage arrays of 28 mirrors and associated focal-plane phototubes and electronics at each of two sites separated by 13 km. They contemplate a full system of 54 mirrors per site to be completed at some as yet unspecified later time. ***